Conformally invariant random systems

Recent years have seen important progress in the understanding of two
dimensional statistical physics. The rigorous study of macroscopic
random geometric structures generated by microscopic random inputs and
interactions has been greatly stimulated by the introduction of
Schramm-Loewner Evolutions (SLE) and related objects. This enabled to
establish results predicted by Conformal Field Theory (CFT) in Theoretical
Physics, most often without matching the techniques. The P.I.'s research program
is primarily directed at realizing CFT concepts from SLE based
constructions. The methods and issues involve an interplay of
geometric, functional analytic and representation theoretic aspects.

The goal of this proposal is to analyze mathematical models of the
physical phenomenon of phase transition. A phase transition describes a sharp
qualitative change in a physical system under variation of an external
paramater, such as freezing of water (transition from liquid to
solid phase as temperature decreases). At the phase transition, a random macroscopic geometry
may emerge, akin to the wiggly interfaces separating non mixing fluids
like oil and water. The study of those fluctuating interfaces is
rooted in both Probability Theory and Theoretical Physics. Special focus
will be placed on the interaction between these two approaches, and
other areas of mathematics involved in the analysis.